CAREER: Subdivision Schemes and Wavelets: New Tools, New Settings

The proposed research will focus on three partly related
directions in multiresolution methods: (I) subdivision schemes
and wavelets in the geometric setting, (II) the advantage of redundant
systems and (III) ideal data representation in higher dimensions.

Subdivision and multiresolution methods in the geometric setting
is a recently launched research area.
Prompted by the extremely high interests in applications such as terrain
modeling and 3-D scanning technology, this research direction has attracted
the attention of both computer scientists and applied mathematicians.
Existing subdivision schemes for surface generation do not promise
well-defined curvature everywhere in a resulted surface. In various
applications it is desirable to work with curvature smooth surfaces.
In the regular setting the proposer recently constructed a family of
C^2 subdivision schemes with a small interpolating stencil.
Underlying this construction is a variety of tools from optimization,
wavelet theory and multivairate interpolation theory. This project will
further refine these tools in order to resolve the original open problem
and such that these tools can be applied to other settings as well.

For various applications in image reconstruction/processing, it
was found that highly redundant wavelet-like image representations
significantly outperform the standard non-redundant orthogonal
wavelet transforms used ubiquitously in the image coding
community. On the one hand, there is currently no complete theory
for explaining the fundamental advantages of redundancy. On the
other hand, researchers have just started to realize the
fundamental limits of wavelet transforms in higher dimensions and
have proposed a wide variety of novel data representation schemes
that address these fundamental limits. Research activity
under this project seeks to develop mathematical theory and
computational tools in the general area of adaptive methods of
representing and analyzing images and other multidimensional data.

The educational plan proposes a new way of teaching
computational science. The project
will develop teaching materials for our numerical computing courses
that better suit the needs, interests and mathematical ability
of computer science students. The goal of
this project is to develop a set of
electronic lecture notes for our future senior numerical computing
course. These lecture notes will add two new dimensions to any of
the existing textbooks: (i) An interactive computational
environment (based on QPE's such as Matlab or Octave)
will be integrated into the notes so that a student can easily reproduce
any computational result presented and derive any new
computational experiments. (ii) Applications
areas such as computer graphics, computer vision, data-mining and
computational fluid dynamics will be
used in various places of
this notes to illustrate the role of numerical methods in industry.